Mathematical Problems in Fluid Dynamics

NSF #DMS-9802611
PI. P. Constantin

Abstract
--------

We propose to extend work on variational bounds for bulk
dissipation in boundary driven Navier-Stokes turbulence, with particular
attention to Rayleigh-Benard convection. We intend to investigate
the effect of rotation and of change in Prandtl number on high Rayleigh
number turbulence. We propose to investigate analytically and numerically
the scaling of generalized structure functions in Navier-Stokes turbulence
and compare the results with those of simple stochastic models. We propose
to study analytically and numerically the formation of singularities
and dynamics of compressible dissipative active scalars and of
quasi-geostrophic incompressible active scalars. We also propose to
investigate models of granular dynamics and their relation to
experimental data.

The present proposal is aimed at the understanding
of nonlinear phenomena in fluids. Understanding these phenomena is essential
to areas that range from weather prediction, climate and environmental
studies, turbulent combustion (as for instance in engines) to the
cosmological question of mass distribution in the universe. The objects of
study in this proposal represent areas that challenge or lie beyond
the capabilities of the most powerful computing systems
available today; the proposal aim is to develop physical mathematics
theory and numerical models that will yield progress in our ability
to perform computer simulations.

NSF #DMS-9802611
PI. P. Constantin

Abstract
--------

We propose to extend work on variational bounds for bulk
dissipation in boundary driven Navier-Stokes turbulence, with particular
attention to Rayleigh-Benard convection. We intend to investigate
the effect of rotation and of change in Prandtl number on high Rayleigh
number turbulence. We propose to investigate analytically and numerically
the scaling of generalized structure functions in Navier-Stokes turbulence
and compare the results with those of simple stochastic models. We propose
to study analytically and numerically the formation of singularities
and dynamics of compressible dissipative active scalars and of
quasi-geostrophic incompressible active scalars. We also propose to
investigate models of granular dynamics and their relation to
experimental data.

The present proposal is aimed at the understanding
of nonlinear phenomena in fluids. Understanding these phenomena is essential
to areas that range from weather prediction, climate and environmental
studies, turbulent combustion (as for instance in engines) to the
cosmological question of mass distribution in the universe. The objects of
study in this proposal represent areas that challenge or lie beyond
the capabilities of the most powerful computing systems
available today; the proposal aim is to develop physical mathematics
theory and numerical models that will yield progress in our ability
to perform computer simulations.